U.S.-Western Europe Regional Seminar: Pade Approximants and Related Topics, Boulder, Colorado, June 20-24, 1988

This award supports the participation of ten U.S. mathematicians in a multinational seminar coorganized by William Jones of the University of Colorado, Arne Magnus of Colorado State University and Haakon Waadeland and Olav Njastad of the University of Trondheim (Norway). The purpose of the seminar is to bring together mathematicians from the U.S., Norway, and several other European countries who share a common interest in Pade approximants but have different mathematical backgrounds and viewpoints. Invited participants include both senior and younger mathematicians with research expertise in topics such as orthogonal polynomials, special functions, moment theory, continued fractions, and other areas of approximation theory. The sharing of insight and understanding from these related perspectives is expected to uncover new lines of research and lead to increased cooperation among the participants from different countries. Pade approximants and continued fractions are closely related to many disciplines of pure and applied mathematics, including the theory of moments, orthogonal polynomials, Gaussian quadrature, representation of analytic functions, asymptotics and summability of divergent series. The development of high speed digital computers has fostered their application to numerical analysis, special functions, theoretical physics and chemistry, and the theory of electrical networks and digital signal processing. The interactions of the diverse participants should provide new insights that will have impact on several of these fields.